Ecological Consequences of a New Coffee Production Technology

The PI proposes to investigate the effects of three types of coffee cultivation on the native insect fauna associated with the area. Preliminary planning activities include: literature review, site location, necessary permissions and collaborating institutions, experimentation with methodologies, preliminary data gathering, data analysis and interpretation, experiment redesign and writing of final proposal. Activities during the first year will involve the comparison of 3 management systems: 1) Traditional agroforestry system with a variety of shade trees interplanted with coffee; 2) the agroforestry system with just one shade tree species intensively managed through periodic pruning; and 3) monocultural coffee with no shade tree. Representative farms will be selected. Base-line data related to ant assemblages, insect pest and disease densities and distributions will be gathered using standard sampling methods. Photon flux density and CO2 uptake will be calculated directly using the Solarcal computer program. Satellite photographs will be used to determine the area of the country planted in the monocultural system. The effect of nitrogen fertilization and the effect of pesticide insecticide applications on the ant assemblage and on pests will be studied in subsequent years.